Responsive Films Derived from Weak Polyelectrolyte Multilayers

TECHNICAL EXPLANATION The objective of the project is to explore principles and develop strategies
for transforming polyelectrolyte multilayers (PEMs) into highly functional pH-, ionic
strength- and/or temperature-responsive coatings which reversibly trap or release
synthetic macromolecules and proteins. New knowledge generated in this project about
physical and chemical ways to stabilize polymer films at surfaces will be a significant
contribution to materials and polymer science. Specifically, the project will provide a wealth of
information on issues pertaining to molecular design of building block for responsive polymer
self-assembly, derivatization of PEMs into active surface coatings and potential capabilities
in PEM-based regulation of surface adhesion and absorption properties.
Our approach will be based on a combination of molecular engineering and synthesis of
polymeric 'building blocks' of PEMs with the chemical composition necessary for further
transformation of PEMs into an absorbing film. We will explore several routes of producing
surface-attached active absorbing films using electrostatic or hydrogen-bonded polymer
multilayers as a starting material. The first route will be based on the dissociation of components
of electrostatically assembled multilayers at high concentrations of small ions combined with
selective 'salting-out' of one of the film components. In another scenario, we will explore
chemical crosslinking of hydrogen-bonding multilayers as a means to produce surface-attached
hydrogels. One-component hydrogels of polycarboxylic acids will be produced by selective
crosslinking of self-assembled polycarboxylic acids and further release of hydrogen-bonded
polymers from the crosslinked polyacid matrix. Two-component hydrogels will be obtained by
reacting end-functionalized hydrogen-bonding polymers with carboxylic groups of selfassembled
polyacid. In the latter type of absorbing films, response and absorbing properties will
be modulated through intermolecular adhesion between hydrogen-bonded polymer chains.
Selective monitoring of film composition, ionization of functional groups and quantification of
charge balance will be done using in situ ATR-FTIR. The data will be correlated with the results
of film swelling as measured with in situ ellipsometry and in situ AFM. The question of how
interpolymer interactions respond to environmental stimuli, and how they are translated into
changes in film density and absorption properties will be addressed.
NON-TECHNICAL EXPLANATION The use of produced films as re-loadable matrices that could reversibly and
controllably absorb and desorb macromolecules and proteins from response to environmental
stimuli, specifically valuable for separation, concentration, and controlled release of chemicals
and proteins in environments with dominating effects of surfaces such as in a microfluidic
channel. Results of proposed research will be made available to a broad scientific audience
through conference presentations, invited talks given by the PI of this project, poster and oral
presentations of graduate students, and archival literature.
The educational impact includes building a stronger interdisciplinary polymer program at
Stevens that will provide better training for students. The results of the proposed research will be
included into recently developed advanced polymer courses, such as Polymers at Solid-Liquid
Interfaces, and other core laboratory courses at both graduate and undergraduate levels.
Participation of women in advanced research will be enhanced also through support of two
female graduate students. Finally, economically disadvantaged high school students will be
given an opportunity to be exposed to this research due to activities our group sustains in the
ACS SEED program.